The NSDL PI Meeting: Sustaining the Conversation About Effective STEM Digital Learning

The project continues collaboration of a very active community and provides a venue to distribute the results of NSDL research and development. The project includes planning, providing web conferencing sessions before the meeting, an orientation session for community newcomers, holding a three-day face-to-face meeting for approximately 175 attendees (based on 2009 attendance) in the fall of 2010, and performing post-meeting survey administration, analysis, and reporting.